CAREER: Biogenic Hydrocarbons from Grasslands - Flux Measurements and Education Outreach

This project is investigating the seasonal fluxes of biogenic volatile organic compounds (VOCs) from grass and agricultural lands. Biogenic VOCs are important because they can have a significant influence on tropospheric chemistry and the formation of photochemical oxidants in the atmosphere.